Analytical Instrumentation for the New Millennium: Biological Sciences

0140644
Wysocki
This award provided support for a workshop entitled "Analytical Instrumentation for the New Millennium - Biological Sciences" to be held Dec 2-5, 2001 in Tucson, Arizona. The workshop will bring together scientists with broad interests in biological measurements, including both the biologists who need the measurements and the instrument developers who design and build instrumentation. The format of the workshop will include highlight presentations by cutting-edge researchers who will conclude with a brief description of goals for the future and the major obstacles to be faced in meeting those goals. These presentations will be followed by breakout sessions to critique/evaluate the proposed goals and obstacles. The expected outcomes of the workshop are a report to be written jointly by the breakout leaders and organizers and presentations to be made at national meetings. This workshop is jointly supported by the Directorate for Biological Sciences and the Directorate for Mathematical and Physical Sciences.